RUI: The Analysis of Number Theoretic Algorithms

This project involves the analysis of number theoretic algorithms. Specifically, the following three problems will be studied: o Determined explicity bounds useful in the analysis of certain number theoretic algorithms under the assumption of the extended Riemann hypothesis. o Determine and precisely analyze the worst-case and average-case behavior of some algorithms for computing greatest common divisors. o Precisely analyze and compare several prime number sieves, including Pritchard's sublinear wheel sieve. Undergraduate students will participate in this research by helping in the design and implementation of algorithms associated with the last two problems listed above.